Student Travel Support for the 2014 North American Power Symposium (NAPS), Held at Washington State University, Pullman, WA, September 7-9, 2014

This proposal requests funding to subsidize student-related expenses (e.g., travel, registration,
and accommodation) incurred by US students attending the 46th annual North American Power
Symposium (NAPS). NAPS 2014 will be hosted by Washington State University in Pullman, WA,
from September 7 to September 9, 2014. NAPS is a nonprofit event with technical sponsorship
from IEEE and is aimed primarily at a student audience. Traditionally, the overwhelming majority
of papers in NAPS are presented by students. NAPS has been supported by the National Science
Foundation in the past, which has positively influenced student participation. Based on the
attendance trend from previous years, it is anticipated that the subsidy provided through
this grant can significantly increase the number of students participating in NAPS in this
year as well. In addition to providing subsidized accommodation for students, our efforts
to foster and encourage student participation include a comprehensive student program, tours
of nearby attractions, and a student paper competition. Moreover, measures will be taken to
encourage participation of women and underrepresented minorities in NAPS.